Cam Synthesis Using Spline Functions - Theorectical Develop-ment and Practical Implementation

This research will examine the use of spline functions to determine plate cam geometry, given a combination of displacement, velocity and acceleration constraints. The approach promises to be important for engineers involved in cam design, especially for designs in high-speed applications.